Doctoral Dissertation Research in Geography and Regional Science

Changes in energy supply require societal adjustments. It is important to understand the nature of those adjustments and what potential contribution changes in household energy-use behavior can make in the face of an impending energy shortfall. This doctoral dissertation project will study two Swedish towns that are dependent upon different energy sources as they comply with the result of a national referendum issued by the Swedish government to phase out the country's nuclear reactors. Historical and theoretical analysis and empirical research involving focus groups, telephone questionnaires, and a mass media analysis will be used to illuminate the positions of those groups that were involved in the nuclear referendum debate and to assess the potential for household energy-conservation programs. This project will provide information valuable both to the scientific community and to policy makers about how grassroots behavior can lead to an acceptance of difficult economic tradeoffs in the interest of environmental management. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.